Mathematical Sciences: Women and Minorities Mentoring Project

This project will sponsor a mentoring program for women and minority researchers in statistics to help launch them in their research careers. During each summer, when the Department of Statistics at Stanford hosts 20 to 40 visitors, many from abroad, three statistical researchers from underrepresented groups will work with mentors to develop their own research. The mentoring responsibilities of the faculty toward these summer post-doctoral fellows will include collaborative work, advice on research avenues and on publication, and introduction to the active research community in the particular subspecialty. Continuity in the mentoring relationship is expected between the two summers of the post-doctoral fellows residency as well.